Subcellular Localization of Opioid Receptors

Opiod receptors of the brain are important in understanding mechanisms of central nervous system processing of the perception of pain or discomfort. Under a variety of conditions the numbers and sensitivity of these receptors be regulated (up- or down- regulated to adjust the nervous system sensitivity to these chemicals. It is unknown where these receptors are normally located or the mechanism of their regulation, i.e., the balance between synthesis, degradation and recycling. These studies will provide new information on the mechanism and sites of action of pharmacological agents that may activate or alter these receptors.